Herbig-Haro Objects and Stellar Jets: New Spectroscopic Diagnostics and Hydrodynamic Modelling

During the last decade improvements in observations have demonstrated that a substantial fraction of young stellar objects (particularly the T Tauri stars and mysterious Herbig-Haro objects) expel oppositely directed jets of material. In this two-year renewal award, the Principal Investigator and his collaborator, Dr. Noriega-Cresbo, will observe the jets in several of these objects in both directions on the sky. They will use the radiative transfer techniques they have developed in their last award to study the two dimensional structure of the jets and also construct computer models simulating the evolution of the condensations they have observed along these jets. This work is the primary observational evidence of "bow shocks" being created from stellar ejections into the ambient circumstellar medium. Such structures are also observed in active galaxies. It is to be expected that this work will affect our understanding of the creation of jets both from stars and the nuclei of galaxies.